A Foundation for Generalized Network Fault Management

As computer communication networks evolve from offering best-effort service to offering real-time services with stringent Quality of Service (QoS) guarantees (e.g. video), the need for improved fault management techniques increases. Network fault management is an open problem that continues to increase in complexity. A major cause of the increase in complexity of this problem is the heterogeneity of networks. Networks of today are comprised of a variety of technologies (e.g. Wireless, ATM, Ethernet), that are expected to support a diverse set of networked applications (file transfer, WWW, video conferencing). The fault management problem has been studied in varying degrees for different technologies, but there are many open issues 29 , 40 , and we are unaware of any methods that can effectively be applied across technologies. Current methods are largely ad hoc and rely on the expertise of a human network manager. Even within single-technology networks (e.g. Ethernet LANs), strategies developed for one network, cannot be easily generalized to other networks. In addition, the rate of change within a network makes it difficult for the network manager to maintain a high enough level of expertise to develop and maintain effective fault management strategies. New techniques that can be generalized and applied across technologies are needed to ensure network reliability in an efficient manner. The long-term goal of this research is to automate as much of network management as possible. Within network management, we will first focus on fault management. Along these lines, the plan is to develop methods for fault management that (1) can be applied across different technologies, (2) can generalize from network to network, and (3) can adapt to changes in the network. Previous research 12 , 13 , 14 has demonstrated that adaptive statistical techniques can be used for network fault detection. These types of techniques use the network measur ements to learn the behavior of the network and can thus be generalized. The goal for this planning period is to identify a set of problems within fault management that can be addressed using rigorous, generalizable methods. Fault management encompasses a large, complex set of problems that have not been well studied or defined. Before methods are evaluated, the problems to be addressed must be identified. Each network technology will be studied in terms of fault management, and a set of issues that are common across all or most of the technologies will be extracted. For each of the problems that are identified, the feasibility of using automated techniques and generalization will be evaluated. Preliminary results will be obtained using the TCP/IP test network. The result of the planning activities will be a research direction that is focused on a set of feasible problems that are widely applicable across network technologies. A web page will be created for the fault management research planning project. The web page will contain a description of the activities and results obtained. The URL of the web page will be http://www.nml.csam.iit.edu/~planning/.